IUCRC Planning Proposal: SMU Research Site Proposal to Join Embedded Systems IUCRC

A planning meeting will be held to determine if Southern Methodist will become a research site of the existing Industry/University Cooperative Research Center for Embedded Systems. As part of the sensor revolution in the various applications of ubiquitous sensing vast amounts of data are generated and there is a need to have an efficient network of smart sensors to harvest these mixed signal data into aggregated digital signals for further processing in an embedded system or networks of embedded systems. A goal of this research site is to provide an infrastructure for university/industry interaction and collaboration in this area.

A result of joining the I/UCRC will be an increase in creation of new intellectual property, commercialization of technology, licensing revenue, and more collaborations among partners of the consortium.